Collaborative Research: FW-HTF-P: Reducing Finished-Product Waste through Augmented Design Intelligence

In the US, enough clothing is manufactured or imported for every person to purchase around 90 new garments per year – about 28 billion in total -- the vast majority of which are rarely or never used. In this project, the research team seeks to build tools to help designers produce clothing that is more likely to be used in order to minimize unsold merchandise, returns, and underused purchases. To do this, the research team will investigate the information that is used by designers and consumers in making decisions and identify areas in which computer intelligence can support designers: for instance, by giving designers more access to information about consumers’ preferences, or by recommending which among millions of potential designs might be ones most likely to be worn. The overall goal of the project is to reduce the amount of clothing that is produced but never ends up in regular use by a consumer, charting a more sustainable future for work in the clothing industry.

This project development award will map the problem space and develop preliminary tools to support a future larger-scale project that integrates a broad array of industry stakeholders. An in-depth qualitative investigation of clothing designers’ current design practices will be used to identify and formalize decision-making processes in order to identify areas in which decision-support tools could have a transformative impact. Information needs in these areas will be formalized, and early prototype decision-support tools will be developed in collaboration with professional designers. A dataset of consumer preferences and product attributes will be collected and used to develop methods of assessing the impact of decision-support tools. The economic impacts of these tools will be modeled to help understand and predict effects of major changes to design practice on other workers in the supply chain.